Implementation of an IP based backbone for MichNet

This award supports upgrading equipment and data communications lines for MICHNET, a statewide network operating among higher education institutions in the state of Michigan. The MICHNET system has been operating since 1973 utilizing X.25 network protocols. Current traffic volume, however, has exceeded the capacity of the hardware and software and modern data communications equipment supporting TCP/IP is being installed. Also, the lines comprising the statewide backbone are being upgraded to 1.5 million bits per second from the current speed of 56,000 bits per second to accommodate the larger volume of traffic. A primary goal of the network is to facilitate collaborative projects and sharing of resources between institutions, including those outside the state. MICHNET will provide operations management and information services and it will give the participating universities a connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The project will also support an upgrade of central site redundant and equipment. The universities need greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the schools to explore innovative educational resources.